Dissertation Research: Nalik Morphology and Syntax

ABSTRACT This project will investigate the morphology and syntax of Nalik, an Austronesian language of Central New Ireland in Papua New Guinea. The findings will form the basis for a doctoral dissertation in the Department of Linguistics at the University of Hawai'i at Manoa which will both provide the first detailed grammatical description of Nalik, and examine the question of syntactic variation in a language community which is undergoing rapid cultural change.